Operationalizing Downstream Product Data for Improved Early Design Processes

The design of new products and systems often requires focused and tailored design approaches that improve specific aspects of product performance. Some of these design aspects of interest are design for improved environmental sustainability, design for reduced manufacturing complexity, and design for increased reliability. These methods, called Design-for-X (DfX) approaches, are typically applied at the end of a traditional design cycle, after a chosen concept has been detailed. In this sense, DfX objectives are traditionally considered after-the-fact additions to the design process, requiring potentially costly iteration and further design refinement. This represents a drag on industrial competitiveness. This research will enable DfX decision making early in a design process by operationalizing data from these downstream DfX approaches. The resulting data-driven design approach will yield smarter early-design-phase design processes that result in higher-quality, better-performing, more-economical and environmentally sustainable engineered products.

The objective of this research is to establish the relationships between design decisions, product function, and downstream DfX data of interest, and to use these relationships as a foundation for new data-driven design processes, thus encouraging smarter design processes. Objectives will be achieved by enabling the assessment of product functionality, creating both a methodology for automating functional modeling, as well as generating functional data for all products in Oregon State University’s Design Engineering Lab Product Repository. When Research Thrust 2 is completed, designers will be able directly quantify the downstream impact of design decisions made early in the design process. This will reduce costly and time-consuming iteration and provide insight into design choices that would not have been otherwise known. Research Thrust 3 will test our method by using a Design for the Environment dataset, and assess how well providing informed, upfront design decisions will reduce downstream environmental impact. Through adherence to open science doctrine, resources will be made widely available to increase their potential impact, including open-access/publicly accessible journal and conference papers, digital media, repository access, and data and code sharing. This work will advance fundamental knowledge of design by developing and applying design automation techniques to overcome a significant shortcoming in this relatively new area of research: the lack of knowledge about how quantifiable information related to DfX impacts (e.g., sustainability metrics) can be used throughout the early design process.